Ridge Systems: Inorganic/Organic Water-Rock Interactions to1000 C and 10.0 KBARS

This is a theoretical study of: (1) the influence of water-rock interactions on the mineralogic and chemical compositions of the lower oceanic crust and upper an mantle, and (2) an integration of inorganic vent fluid chemistry with hydrothermal alteration of organic matter at sedimented ridges. Once the major rock-forming element chemistry is better understood, linkages between shallow and deep hydrothermal fluids can be elucidated. Trace element and organic compound transport, as well as alteration and redistribution, will be incorporated.